Engineering Research Equipment Grant: Axial-Torsion Materials Testing System

Research into the development of inelastic constitutive models has recently attracted a high degree of interest. This research has been made possible by the development of improved computational facilities for model formulation and more sophisticated computer-controlled testing systems for model verification. An IBM 4341 Group II CAD/CAM system valued in excess of $2 million has been acquired; however, evaluation and verification of modern constitutive theories require multiaxial computer-controlled testing systems. Additional equipment will be purchased, including a computer-controlled, axial-torsion, servohydraulic materials testing system. This system is capable of applying tensile, compressive, bending or torsional loads under static or dynamic conditions, including constant amplitude fatigue and random and programmed loadings. Such capabilities are extremely important in the development and verification of modern constitutive theories.